Laboratory Revision in Genetics & Improvements in Cell & Molecular Courses

Recent biology program revisions have placed a greater emphasis on cell and molecular biology. We are now engaged in a total revision of Genetics, and are continuing to improve other courses in the cell and molecular area. The major thrust of this project is to redesign the genetics laboratory and enhance previously revised cell and molecular courses, by exposing upper division undergraduate students to advanced instrumentation and techniques critical to scientific experimentation in modern cell and molecular biology. These techniques will be presented in an investigative, student-initiated, project-based laboratory designed to turn "science students" into "student scientists". Requested instrumentation vital for the successful completion of this project are a PCR thermal controller, sequencing gel electrophoresis units, imaging densitometer and sequencing software, and DNA analysis software. The thermal controller provides for the ability to amplify small amounts of DNA, the electrophoresis units allow for separation of DNA samples, the imaging densitometer for quantifying protein gels, Western and dot and slot blots, and the DNA analysis software for analyzing sequences of DNA, cDNA's, and protein sequences for conserved motifs, designing PCR primers, and protein structural and restriction site analysis. By providing state-of-the art instrumentation and engaging students in the design and analysis of exciting, relevant problems, this project will increase their knowledge of the scientific process, and prepare them more completely for scientific careers. We believe this approach will be of interest to colleagues in other undergraduate institutions, and a projected outcome from this project will be the creation of laboratory materials that can be adapted for use in other programs.